Biocomplexity---Incubation Activity: Multiscale Representations

Bar-Yam, Yaneer
DMS-0083885

Abstract:
Recently, systems and fields ranging from physics to Meteorology, from chemistry to biology, and even from psychology to economics and political science have been recognized as having common features which identify them as complex systems. Complex systems have structure and behavior on multiple scales of time and space. However, complex systems methods are lacking a formal multiscale methodology,. This project of formalizing multiscale descriptions of complex systems is a stage in the development of a unifying approach, which will be useful to solve important problems. In this incubation activity the researchers will develop collaborations and core research that will enable implementing this formalism for problems of hurricane prediction, the sign of robust computer networks, and the analysis of high throughput data generation in biology.

This incubation activity will lay the groundwork for this generally useful methodology to be pursued by a community that includes selected members of the faculty of Brandeis University, Boston University, Harvard University, MIT, Tufts University, University of Massachusetts, Yale University, and other academic institutions. Interdisciplinary supervision will be integrated through a core program developing the multiscale methodologies.